Management Enhancement for Fossil Vertebrate Resources in the Texas Memorial Museum - Phase II

The Vertebrate Paleontology collection at the Texas Memorial Museum, University of Texas, includes 150,000 catalogued specimens, 156 types and vouchers, and is one of the most valuable research collections of its kind in the U.S. The collection's strengths are in the diverse Texas Mesozoic fauna, Devonian fishes, and Tertiary mammals of the south and southwest. Dr. Ernest Lundelius, Director of the Vertebrate Paleontology and Radiocarbon Laboratory in the Texas Memorial Museum, has devised a three-year plan for continued improvement to the collection. This phase would include installation of new specimen storage cabinets, new storage racks for very large specimens, and would replace the outdated computer equipment that currently hampers the database operations. Curatorial projects would continue to improve the availability of specimens and the accuracy and accessibility of specimen-related data. The proposed collection improvement will have significant impact on the paleontological research community. The vertebrate fossils in the Texas Memorial Museum are heavily used by research paleontologists in studies of evolution, paleoecology, and global change. Improving the accessibility of these collections will benefit generations of research scientists.